Singularities in Geometry and Topology

Abstract

Award: DMS-0706968
Principal Investigator: Jeff Cheeger, Shmuel Weinberger

This conference will explore differing approaches to non-smooth
spaces that arise in modern geometry and topology with an eye
towards cross-fertilization among the various groups of
researchers. Two of the central thrusts are topological methods
based on the ideas of a stratification, and metric measure
spaces, and their analysis, especially their differential
calculus. Others are based on cohomology with growth conditions,
or resolution of singularities, intersection homology, sheaf
theory etc. Moreover the applications of these studies are
diverse, from the Novikov conjecture, knot theory, and
transformation groups to Gromov-Hasudorff convergence techniques
in Riemannian geometry and geometric group theory to problems of
interest to theoretical computer scientists (embedding finite
metric spaces in various Banach spaces). It is anticipated that
as a result of this meeting, progress can be expected in the
directions of producing analytic geometric structures on singular
spaces, the quasi-isometric theory of groups, and characteristic
classes.

Many of the basic ideas of analysis and geometry are based on the
idea of linear approximation. The first example of this is
calculus itself where linear approximation defines the basic
notion of the derivative. A more modern example is the idea of a
manifold in topology, which is a space that is, in small regions,
well approximated by Euclidean space. Countless further
developments have shown the need for more general tools to deal
with situations where such approximations are not feasible or may
not exist. By bringing together workers who have dealt with
these issues in varied contexts, this conference will spur the
development of new syntheses and bring to the fore common issues
that arise in completely different settings. The conference web
site is http://www.math.uchicago.edu/~shmuel/Cappelliday.